Workshop: 2011 iConference Doctoral Research Colloquium

This proposal requests support for a research colloquium of doctoral students and research faculty to be held in conjunction with the 2011 iConference hosted by the University of Washington. The iConference is the annual meeting of the iSchools Project, a consortium of 27 schools, at this time, with programs that focus on the relationships among information, technology, and people. The iSchools are interdisciplinary, including the fields of information science, library science, computer science, education, history, philosophy, sociology, and management. iSchools are global in their reach. The iConference brings together faculty, students, research staff, and industry researchers who share an interest in supporting and augmenting human engagement with information and technology. This will be the sixth iConference. The goals of the 2011 colloquium include helping to advance and enrich the dialog between students and faculty in the iSchools and exploring career opportunities available in the academic research community and other public and private sector areas.